An Undergraduate Rock Fragmentation Laboratory for Mining Geophysical Engineers.

A rock fragmentation and blasting laboratory will be installed at a local open pit mine for undergraduate mining and geophysical engineering students. Using a digital seismograph system, the students will enhance their understanding of blast design and the environmental effects of blasting, ground vibration and airblast control. The students will also gain experience in seismic exploration and the interpretation of three dimensional seismometry.